Mathematical Sciences: Conference on Graduate Programs in the Applied Mathematical Sciences II

This project will support a Conference on Graduate Programs in the Applied Mathematical Sciences to be held April 16-17, 1993 at Clemson University. Major objectives of the conference are to project characteristics of successful graduate programs for the 1990's and beyond, to identify those characteristics of current programs that are essential for success, and to clarify nonacademic employment opportunities. Both masters and doctoral programs will be addressed. Specific conference objectives are: (1) to review the current state of graduate education in the applied mathematical sciences; (2) to obtain perspectives on current industrial/government employment opportunities and placement; (3) to clarify methods to attract undergraduates to graduate study in the mathematical sciences; and (4) to publicize graduate applied mathematical science programs to the university community and potential students. Major themes of the conference will be recent developments within the mathematical sciences, their utility as essential ingredients for the solution of modern technological problems, and the challenges and opportunities these developments present to graduate education in the future. Individuals from universities, industry, and government laboratories, who possess a broad perspective, will be invited participants. Representatives from the professional societies, including the American Mathematical Society, the American Statistical Association, the Operations Research Society of America, and the Society for Industrial and Applied Mathematics will also be invited. A forum will be provided within which leaders in the field can assess and make recommendations for future graduate programs. A conference proceedings will be published.